RUI: Ion Channels and Cell Volume Regulation in Amphibian Red Blood Cells

9303427 Light The ability of animal cells to regulate their volume is one of the most fundamental properties of living cells. When cells are exposed to hypotonic solutions there is an initial increase in the volume of the cell followed by a regulatory volume decrease (RVD) back to the original size. The mechanism by which this process occurs is not known. This research will characterize the ion channels involved in the RVD using the red blood cells of the mud puppy, Necturus, which have been found to regulate their volume with the involvement of potassium, calcium and chloride channels. %%% The ability of animal cells to regulate their volume is one of the most fundamental properties of living cells. The goal of this research is to characterize the role of specific ion channels in the process of cell volume regulation. The results will not only increase our understanding of the role of ion channels in the process of cell volume regulation, but this research at an undergraduate institution will provide an opportunity for undergraduates to participate in original research as a part of their science education. ***